Mathematical Sciences: Approximation of the Global Attractors of Evolution Equations

With this award the principal investigator will use analytical and numerical tools to study the long-time behavior of solutions of certain dissipative partial differential equations such as the Kuramoto-Sivashinsky equation and the Navier-Stokes equations. Of particular interest is the approximation of a set called the global attractor, which is a finite-dimensional, fractal set that lies inside of an infinite- dimensional phase space. In order to describe the global attractor the principal investigators plan to construct an algebraic approximation method that uses smooth finite- dimensional manifolds to approximate the fractal set and then to implement this method on a computer. From an abstract point of view one can regard the solutions of a partial differential equation as generating a space of trajectories or curves that is infinite-dimensional. This is one reason why the study of such equations is difficult. Fortunately, though, within this infinite-dimensional space reside sets of finite dimension that characterize how solutions behave for very large times. And since these sets are finite- dimensional, it is possible to describe them approximately using numerical and analytical techniques. With this award the researchers will study finite-dimensional objects called global attractors that arise in the solution sets of equations from fluid dynamics.